Modeling Phonetic Structure Using Articulatory Dynamics

ABSTRACT The investigators will continue the development of a computa- tional model of phonetic structure, begun with earlier NSF support. The model is based on a particular dynamical systems approach called "task dynamics", which abstractly characterizes speech gestures in terms of coordinated patterns of articulator movements during speech production. The relative timing and parameterization of the gestures comprising a given utterance are specified by a "gestural score" that is generated by the model's linguistic gestural component. Articulatory measurements obtained from speakers of English, Italian, and Japanese will be analyzed to derive values for the relations between vowel and consonant gestures as well as for the parameters of the individual gestures in the gestural score. Because the model is based on such articulatory evidence, it is particularly appropriate as a phonetic framework for use with recent non-linear phonologies that emphasize the phonological relevance of articulatory features. Further, because the model is couched within a dynamical systems approach, it provides a concise and principled account of much variability, including historical change, in terms of spatial and temporal overlap among speech gestures.